Plymouth State Conversion to the Unidata Internet Data Distribution System and to an X-Window Terminal Laboratory

Abstract ATM-9526716 James P. Koermer and Joseph Zabransky, Jr. Plymouth State College UNIDATA: Plymouth State Conversion to the UNIDATA Internet Distribution System and to an X-Window Terminal Laboratory. Funds will upgrade the computer and associated networking capabilities needed to support the educational and research objectives of the meteorology program. This equipment will provide Plymouth State College students with the data and tools needed to enhance their educational experiences.